Practical Persistent Data Structures

Practical Persistent Data Structures

The legal phrase "status quo ante" refers to reverting to a previous
state of affairs. The same concept frequently arises in computer
science. For example, most word processors include an "undo" feature that
nullifies the most recent changes and returns the document to its previous
state. Unfortunately, most current methods of organizing data do not
support the ability to revert to previous states, or at least do not do
so efficiently. This research involves designing and evaluating practical
techniques for supporting such an ability.

Technically, a data structure is called "persistent" if updating the data
structure creates a new version without destroying the old version. After
the update the two versions co-exist, and future operations can refer to
either or both. Persistent data structures are sometimes called immutable.
Persistent data structures have applications in computational geometry,
transaction processing, editing, functional programming, compilers, and
many other areas. In addition, persistent data structures have several
important non-algorithmic benefits, including elimination of certain
families of bugs, increased security, and decreased need for synchronization
among multiple processors. The objectives of this project include - inventing
new persistent data structures, with an emphasis on practicality rather than
merely theoretical efficiency, - extracting from these new data structures new
design and analysis techniques suitable for a persistent environment, and -
experimentally evaluating the practical efficiency of competing persistent
data structures.